Community Response to the October 17, 1989 Earthquake

This project focuses on the Loma Prieta earthquake. The Institute for Social Science Research (ISSR) and the School of Public Health at the University of California, Los Angeles, with consultative assistance from the southern California Earthquake Preparedness Project (SCEPP), will collect perishable data from a representative sample of 375 respondents in the San Francisco Bay Area. The data will be collected by telephone interview. Using an instrument designed for the collection of data from Los Angeles following the Whittier Narrows earthquake of October 1, 1987, the data collected will assess community members' experiences during and after, and reactions to, the Loma Prieta earthquake of October 17, 1989. Creation of this unique data set will allow for the comparison of community members in the two most earthquake-prone urban areas of the United States.